Meson Physics at Arizona State University

During the award period, the Arizona State University Meson Physics
Group will continue to study the internal quark structure of the
neutrons and protons (nucleons) that make up atomic nuclei. The group
will use high energy photons to excite these neutrons and protons, and
then study the ways these excited nucleons decay. In particular, we will
look for the emission of eta and eta-mesons during the decay process. By
observing various decay modes, we will provide important data that will
test and refine theories of how the neutrons and protons are built up
from quarks.

The high energy photons will be provided by the Bremsstrahlung Photon
Tagging Facility in Experimental Hall B at the Thomas Jefferson National
Accelerator Facility in Newport News, Virginia. The decay products will
be studied using the CEBAF Large Acceptance Spectrometer (CLAS) in Hall
B. Members of the ASU Meson Physics Group form part of the CLAS
Collaboration and, during the award period, we will provide service work
associated with maintaining this experimental equipment, as well as
support data-taking for CLAS experiments as required.